Conference: NSF Student Travel Support for the 39th Annual AAAI Conference on Artificial Intelligence (AAAI-2025)

The 39th Conference on Artificial Intelligence (AAAI-25) will take place from February 25 to March 4, 2025, at the Pennsylvania Convention Center in Philadelphia, Pennsylvania, USA, organized by the Association for the Advancement of Artificial Intelligence (AAAI), a non-profit scientific society focused on advancing the field of artificial intelligence. The event will bring together experts from across the globe. This event will feature technical presentations, workshops, panels, and invited talks across various AI domains, including machine learning, natural language processing, computer vision, robotics, and cognitive science. This project will support full student participation in the meeting.Participation in the Association for the Advancement of Artificial Intelligence (AAAI) conference offers significant advantages across various AI fields. Attendees gain invaluable networking opportunities, fostering collaboration among researchers, industry professionals, and educators.

The AAAI-2025 conference serves as a key platform for sharing groundbreaking research and fostering intellectual exchange in the field of artificial intelligence (AI). This prestigious event will feature technical presentations, workshops, panels, and invited talks spanning various AI domains, including machine learning, natural language processing, computer vision, robotics, and cognitive science. It also presents a valuable opportunity for students and aspiring AI professionals. This collaborative environment is particularly advantageous for students and recipients of NSF travel awards, promoting groundbreaking research while enhancing career growth and visibility. Exposure to the latest AI trends and discussions at AAAI also enriches knowledge, supporting the development of educational curricula and ensuring students receive up-to-date AI education. The conference’s focus on ethical considerations equips attendees, including NSF travel awardees, to contribute to responsible AI development, societal impact, and policy making.